NSF CONACyT: Characterization of Mechanical Properties of Bacterial Adhesives

A collaboration with an investigator in Mexico will be fostered through this award sponsored, in part, by the CONACyT Program. The properties and strengths of microbial adhesives will be characterized using atomic force microscopy and other methods. The counterpart in Mexico at the Universidad Autonoma de Campeche will provide putative antagonists of microbial fouling. Overall, an improved picture of biofouling will be provided as well as an exploration of using the natural compounds as potential replacements for synthetic adhesives.